Organizational Nominee Minority Science Programs at the University of California, Irvine

HRD 0528451
The submitted nomination package is in support of a Presidential Award for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM) to recognize outstanding mentoring efforts or programs that enhance the participation of historically underrepresented groups in science, mathematics, and engineering.

The nomination is in support of the University of California-Irvine Minority Science Programs for a PAESMEM award in the Organizational category. The UCI-MSP program is comprised of a number of innovative activities that promote the academic achievement of students beginning in the middle schools and that act as pathways to two-year and four-year college possibilities. The program is based, in part, in partnership with four local K-12 school districts, four community colleges (two-year), and six universities. The program engages students' interest and has shown significant success. Program achievements include: K-12 students (thousands) have prepared science fair projects and participated in STEM informational outreach activity and K-12 STEM teachers have participated in teacher professional development; two-year college students (hundreds) have participated in STEM training programs; undergraduates students have received research awards and have authored/co-authored papers in peer-reviewed journals; and graduate students participate in the Minority Graduate Research conference.